MRI: Acquisition of PS-3 Automated Peptide Synthesizer to Enhance Research and Training at Texas A&M International University

1335988
Gupta

This MRI project proposal requests funds for an automated PS3 peptide synthesizer system to
facilitate the expansion of a peptide chemistry laboratory at Texas A&M International University
(TAMIU), a Hispanic serving institution in South Texas. To foster the continued expansion
of research at TAMIU and to better provide educational/research opportunities for their students,
this proposal requests funding for equipment that will: 1) contribute to the limited understanding
of the mechanism by which cell penetrating peptides (CPPs) translocate cell membranes; 2)
increase knowledge of which key spider silk peptides are associated with specific mechanical
properties; 3) elucidate the mechanisms of carbohydrates receptors responsible for malignant
behavior of cancerous cells 4) provide training and access a research methodology to a large
number of predominantly Hispanic students, who are historically underrepresented in math and
science professions; 5) augment the education experience of several existing biology courses
and enable the creation of an additional elective chemistry course on polymers; 6) foster
intramural and extramural collaborations, and 7) increase TAMIU’s competitiveness for extramural
research funding and publications.